Investigations of Lepton Interactions

This project will test the fundamental underpinnings of the standard theory of quantum electrodynamics (QED) by measuring decay rates and the properties of the excited states of positronium, a "molecule" consisting of one electron and one positron (positively charged electron). A related experiment will center on a test of time reversal invariance, one of the fundamental symmetries thought to be found in nature.